REU Site: EXERCISE-Explore Emerging Computing in Science and Engineering

This funding establishes a new CISE Research Experiences for Undergraduates
(REU) site at Salisbury University. The project, called Explore Emerging
Computing in Science and Engineering (EXERCISE), exposes students to
emerging parallel programming models, such as GPGPU languages and MapReduce,
applied to compute intensive problems in computer networks, image and signal
processing, and geographic information system.

The project will provide an opportunity for twenty-four undergraduate
students over a three-year period to participate in a supportive environment
that encourages them to pursue graduate studies in Computer Science. It will
expose these students to parallel programming, which is an area of growing
importance, and offer them the opportunity to present their results at
regional and national professional conferences. The site will recruit
participants from under-represented groups.